Lipid Organization in Acetylcholine Receptor Clusters

The objective of this research is to clarify the role of lipids in organization of acetylcholine receptor (AChR) clusters which form in muscle cell membranes in vitro. Early in development of the vertebrate neuromuscular junction (NMJ), the interaction of nerve and muscle produces a cluster of AChR, with greater receptor density than in surrounding non-junctional regions. The clusters of AChR, which form in rat muscle cells in culture, are essentially identical to early embryonic clusters and can be isolated following cell disruption with saponin. The remaining substrate-associated clusters are organized into linear AChR-rich and AChR-poor (or "contact") domains. Experiments proposed will study the composition and organization of lipids in the bilayer of isolated AChR clusters. Since cluster formation in vitro is a model for the developing NMJ, these results should also elucidate the structure of the developing postsynaptic membrane.